IRNC: Core Improvement: TransPAC5: Multilateral Partnerships to Accelerate International Research and Experimentation

TransPAC5: Multilateral Partnerships to Accelerate International Research and Experimentation builds on more than twenty years of collaboration in the Asia-Pacific region to provide network capacity and services in support of US-Asia science collaborations. TransPAC5 includes multilateral agreements and expanded networking partnerships with regional teams and NRENs associated with 33 countries. Relationships will continue with the Asia Pacific Advanced Network (APAN), the Trans-Eurasia Information Network (TEIN), and the Asia-Pacific Ring (APR) collaboration. TransPAC5 will augment both the available APR capacity and the APR membership with partners the Korea Research Environment Open Network (KREONET), the KOrea advanced REsearch Network (KOREN), the University of Hawaii, Australia's Academic and Research Network (AARNet), and European Nordic REN, NORDUnet.

TransPAC5 will advance knowledge and understanding across a broad set of international research collaborations through its support of both network capacity and services. The project doubles the current transoceanic high-speed offerings of the APR and leverages the unused capacity to formally offer pragmatic networking resources to the advanced network experiment community, enabling transformative approaches to be tested in production settings, not just test beds. The project supports large scale international R&E collaborations including high energy physics, astronomy, and bioinformatics.